Theory and Applications of a New Class of Stochastic Processes

The aim of this research is to investigate the time dependent behavior of a class of stochastic processes that arises in the evaluation of the cost of product warranties. The underlying process is a point process for which the distribution of the intervals is time dependent. An appropriate reward function is introduced to evaluate product warranty. The aim of this research is to investigate a class of stochastic processes that arises in the evaluation of the cost of product warranty. It is expected that this research can yield better understanding of how to determine warrantee periods.